Geometry of abelian varieties and their moduli

The PI is proposing to investigate geometry of the moduli space of
principally polarized complex abelian varieties. He proposes to
undertake (together with collaborators) a study of the cone of
effective divisors on the moduli space, of the intersection theory
of divisors, and of the compactifications induced by vector-valued
Siegel modular forms. The PI further proposes to examine the geometry
of Kummer varieties, and in particular of their secants, generalizing
and extending the earlier work related to the trisecant conjecture, to
define a natural stratification of the moduli space. To this end, he
also proposes to investigate the geometry of the 2Theta linear
system, aiming to get a description of base loci and singularities
generalizing Riemann's theory for Theta. The PI proposes to combine
methods of algebraic geometry, number theory/modular forms, and even
integrable systems to undertake this study.

Abelian varieties and their moduli spaces are one of the classical
central objects in algebraic geometry and number theory. An abelian
variety is an algebraic variety with a group structure, i.e.
essentially it is a geometric object on which the operation of taking
a sum of two points is defined. The complex dimension one case -
elliptic curves, which can also be thought of as cubic curves like
y^2=x(x-1)(x-a) - gives rise to many beautiful classical geometric
constructions: for example, to compute the sum of two points one draws
the line through these two points, take its third point of intersection
with the graph and change the sign of y. In every dimension there are
many different abelian varieties (varying "a" above gives different
objects). Understanding the geometry of the moduli space - the set of
all possible abelian varieties of a given dimension - could
yield insights in topics as varied as algebraic geometry, number
theory, integrable systems, and string theory.